Local and Nonlinear Kernel Approximation

Hangelbroek
DMS-1047694

The goal of this project is to develop new tools and
algorithms for effective kernel approximation on Euclidean
domains and certain compact manifolds. This work includes two
important aspects. The first is to develop schemes to treat
highly nonuniform arrangements of data (with approximation rates
controlled by a parameter reflecting the local density of the
data). The second is to devise nonlinear schemes that
approximate using linear combinations of very few kernels.
Schemes developed abide by two features of mainstream
approximation theory (features that have generally been elusive
for kernel-based approximation schemes): they provide
approximation that is precise, by providing convergence rates
dictated by the smoothness of the approximand, and they are
universal, by treating approximands at all levels of smoothness.

The use of kernels to treat scattered, high-dimensional data
is, by now, an established methodology in approximation theory.
Kernels are especially prized for their ability to approximate in
the absence of underlying geometrical structures, like meshes or
triangulations. At this point there exist several algorithms
employing kernels to treat large datasets that have been sampled
almost uniformly. However, the approximation power of such
algorithms -- judged in terms of the fidelity of the approximant
to the approximand -- is rarely completely understood.
Furthermore, the question of how to treat highly nonuniform data
(data with large gaps, or with points that coalesce) using
kernels is only beginning to be addressed. An important goal of
this project is to develop kernel-based approximation methods
that approximate from highly unstructured datasets and that
approximate high-dimensional datasets with little computational
overhead. Another goal is to acquire a precise understanding of
the approximation power of such methods. Of particular interest
are problems where there is some underlying geometric or
algebraic structure to be exploited, as, for example, is the case
in problems in geodesy, crystallography, and molecular biology.